CONFERENCE TITLE: Gaseous Electronics Conference

This grant is for support of students to attend the 1999 Gaseous Electronics Conference in Norfolk, VA, October 4-8, 1999. This conference is the major source of cross fertilization between the atomic, molecular, and optical physics community, the low-energy plasma physics community and industry.